Infrared Camera and Imaging System

Abstract
CTS-0075852
Duane, T. Johnson, University of Alabama, Tuscaloosa

The infrared camera, that has been requested by the two PI's, will immediately support five active investigations and it will provide the stimulus and basis for future studies. The immediate studies are in two categories: convective flows of liquid metals and the behavior of catalysis units. These investigations are well motivated in terms of their scientific attributes as well as their contributions to the associated technological applications.